BHCC Computer Network Program: Upgrading Microcomputer Technician Skills with a Dedicated Novell Lab

Through this project, the Computer Technology Department is establishing a Novell network system, which is currently the industry standard. The newtwork resembles a real-world local area network, consisting of 18 IBM PCs and 3 Power MAC workstations, as well as several printers. The laboratory supports four core courses in a new 1-year certificate program: Introduction to Networks, Network Administration, Advanced Network Administration, and Fundamentals of Internet Work. The college also offers a 62-credit associate degree program in Computer Networks. Eligible students include: currently employed computer operators requiring training for career advancement, high school graduates, and clients under the Job Training Partnership Act. Information about the project and its outcomes will be widely shared through the American Association of Community Colleges, the New England Board of Higher Education, Internet, and a summer Tech Prep institute for high school teachers.